Support for an Array Processor (Materials Research)

This award will provide funds to support an ST-100 array processor. The 100 megaflop machine will be used to carry out numerical simulations of a variety of physical systems of interest in condensed matter and high energy physics.